Tritium, Helium Isotope and AMS 14C Measurements on WOCE WHP Line P17S

In this project, the PI will collect and measure the tracers tritium and helium isotopes, and collect samples to be analyzed for Carbon-14, on a hydrographic line, south of 45 degrees South, in the Pacific, as part of the World Ocean Circulation Experiment (WOCE). Data from this line, designated as WOCE line P-17S, will be combined with other WOCE data to study the deep and bottom water formation and circulation in the Pacific sector of the Southern Ocean.